Oceanographic Technical Services 2006-2008, RV Atlantic Explorer

0612961
Bates
This 3-year award to Bermuda Biological Station for Research (BBSR) provides support for technical services during NSF-funded programs on R/V Atlantic Explorer, a 168' general purpose research vessel acquired by BBSR in late 2005, and beginning operations in early 2006 as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. BBSR will provide one, or in some cases two, shipboard technicians on each cruise of R/V Atlantic Explorer to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.
***